CSR---AES: Universal Transactions

The researchers at Stanford University are developing a Java based transactional programming language and a Java Virtual Machine (JVM) environment that unifies memory level transactions and application level transactions such as those supported by the widely used application server environment J2EE. The Java based programming language includes a single set of constructs based on transactions that allow programmers to specify the parallelism, reliability expectations, and consistency requirements in a distributed application. The JVM based runtime system manages the execution of user-specified transactions across the resources available in the system. The unified transactional memory environment will allow programmers of commercial and scientific applications to achieve considerable programmability, performance, and reliability advantages compared to current programming environments.